A Computer Data Acquisition and Control Laboratory for Undergraduate Courses

The data acquisition and control laboratory serves the needs of several courses. The laboratory will include analog and digital electronics, computers, computer interfacing devices and software. Topics taught in the laboratory include: a) hardware and software interfacing techniques, b) methods of computer based automation, measurement, data acquisition, experiment control, and data analysis. The grantee provides funds for this project that are an equal match for the NSF award.